Student Support for the 1996 Gaseous Electronics Conference at Argonne National Laboratory

This grant is for support of students to attend the 1996 Gaseous Electronics Conference at Argonne National Laboratory, October 20-23, 1996. This conference is the major source of cross fertilization between the atomic, molecular, and optical physics community, the low-energy plasma physics community and industry.